RUI: Incompleteness of the Third Kind in Set Theory

The PI proposes to continue work on several problems in set theory, using the
methods of set and class forcing, infinite combinatorics, infinitary logic,
and fine structure. Previous work has shown that certain combinatorial
characterization problems do not have first-order solutions. For example, in
general there is no first-order definition of the set of subsets of omega-2
that, in some omega-1 and omega-2 preserving outer model, have a closed
unbounded subset. Other examples regarding subsets of other cardinals,
branches through trees of certain sorts, and large homogeneous subsets for
certain partitions are known. One line of work concerns settling some further
cases. Another line of work concerns a more fundamental question. Can this
phenomenon can be mitigated by working relative to some reasonable extension
of ZFC, for example, one that is consistent with all large cardinal axioms.
The logically most simple case of incompleteness of the third kind lies
(necessarily) just beyond the scope of Woodin's celebrated generic
absoluteness theorem: Assume CH. Consider Sigma-2-1 sentences of analysis
with sets of reals as parameters. In general the set of such sentences that
are satisfiable in some outer model having the same reals is not first-order
definable. Does there exist an extension of ZFC that is consistent with all
large cardinal axioms and relative to which this set is (lightface) Delta-2-2
definable? Finally, the PI is interested in several questions regarding class
forcing.

The proposed work centers on incompleteness of a "third kind" in set theory.
Incompleteness in set theory is important because all mathematics can be
formalized in set theory. Propositions that are neither provable nor
refutable from the axioms of set theory cannot be settled
mathematically, at least in our current understanding. Goedel's famous
Incompleteness Theorems show that such propositions exist. Sentences
demonstrating this first kind of incompleteness formalize metamathematical
statements. For example, the formalization of "ZFC is consistent" is neither
provable nor refutable from the axioms of set theory (ZFC), provided those
axioms are, in fact, consistent. Even though "ZFC is consistent" is not
provable from ZFC, there is an obvious reason to favor it over its
negation---studying mathematics within ZFC presupposes that ZFC is consistent.
Incompleteness results proved using Cohen's method of (set) forcing represent
a second kind of incompleteness. Typically, given a "standard" model of ZFC,
one constructs an outer model in which a given statement is true and one in
which it is false. In the case of this
second kind of incompleteness, there is often no reason to favor a statement
or its negation. Deep work by Woodin, Steel, Martin, Foreman,
and a number of others has suggested reasons to favor certain statements up
through a certain level of logical complexity. Just beyond this level of
logical complexity lies incompleteness of a third kind. Here it is not
possible even to say which statements are satisfiable in some outer model.
"Characterization problems" are the combinatorial form of this phenomenon.
Past work of the PI has highlighted that, in general, it is not
possible to characterize in set theory the "satiable objects" of certain
sorts. Precise statements are technical, but an analogy gives the general
idea. In this analogy, the "objects" correspond to equations. An object is
"sated" if the corresponding equation is solvable. An object is "satiable" if
the corresponding equation is potentially solvable, that is, either solvable
or solvable in some larger number system. In elementary mathematics, there is
no reason to distinguish solvable and potentially solvable equations because
typically there exist maximal number systems in which every potentially
solvable equation of a particular sort is actually solvable. Such "maximal
standard models" do not exist in set theory. The analog of an
anticharacterization result in set theory would be a type of equation for
which there cannot be a good criterion for potential solvability.
Anticharacterization is troubling for two reasons. First, in mathematics one
expects that anything that is true is true for a good reason---so there ought
to be a criterion for insatiability. Secondly, in their strongest form, these
anticharacterization results hold only if the universe fails to be
"sufficiently non-minimal". To some extent this threatens the well established
thesis that all of mathematics is formalizable in first-order set theory,
because non-minimality cannot be expressed in this language. The PI
seeks to explore three aspects of anticharacterization. First, he seeks to
determine whether some specific cases of characterization problems are
solvable. Secondly, he seeks to discover whether adding auxiliary axioms to
the usual axioms of set theory might allow satiable objects to be
characterized. This could be construed as evidence in favor of these axioms.
Finally, he seeks to continue work on abstract class forcing with an eye
towards understanding general outer models, at least in the presence of
conditions that render models highly non-minimal.